Structure and Impact of Spatiotemporal State on Catalytic Surfaces

A wide variety of spatiotemporal patterns exist in nature with a wide degree of complexity, from simple and regular to highly disordered structures. These structures show some order in the midst of complex nonlinear behavior. The coupling of chemical reactions and transport processes, such as diffusion or hydrodynamic convection, is known to lead to the formation of spatially organized distributions of reactive compounds. Analysis and prediction of pattern-formation in chemically reacting systems to date have been for homogeneous medium and there is lack of understanding if and in which way inhomogeneity of a medium will distort the patterns that exist in a uniform medium. This relates directly to the performance of commercial heterogeneous catalysts, which are inherently nonuniform. The answer has implications on the assessment of the impact of spatiotemporal patterns on the performance of catalysts. This research involves experimental, numerical and theoretical studies of the formation, evolution, characterization, and impact of spatial and spatiotemporal patterns on catalytic surfaces. The experiments will provide quantitative data about the dynamic features of the patterns on catalysts with simple and symmetric geometry in a well-controlled environment for several test reactions, and will provide important information on the impact (or lack of impact) of catalytic- surface inhomogeneity on the observed patterns. The experimental information will serve as a guide to theoretical- model development and modification and for determining parameter values. Numerical and theoretical studies will help direct and organize the experimental research and point out potentially interesting regions of experimentation and catalyst geometries, and guide the development of principles predicting pattern formation and its impact. The research should provide insight into the role and impact of spatiotemporal patterns on the performance of heterogeneous catalysts.